Directional Behavior of Remanent Magnetizations at Low Temperatures

Many natural magnetic minerals undergo transitions at low
temperature. Scientists investigating the history of Earth's
magnetic field sometimes use such transitions to help demagnetize rocks,
removing magnetizations acquired after rock formation. For example,
magnetite undergoes a change in crystal structure (from orthorhombic to
monoclinic) at approximately 120 K known as the Verwey transition. A
loss of the magnetic remanence carried by relatively large magnetite
grains is also observed at the transition. However, our understanding of
this process, as well as processes associated with transitions in other
natural magnetic minerals, has to date been based mainly on measurements of
total magnetic moment. A prototype device enabling the measurement of
directions with a SQUID magnetometer during cooling/warming through
low temperature transitions suggests interesting phenomena,
possibly related to the interactions of magnetic domain walls and
crystal deflects. The PI will test this hypothesis, compile new directional
data on a wide range of magnetic minerals, and continue to develop the device
for low temperature cooling/directional analysis. Broader impacts of the
work include educational efforts and the development of a research tool
useful for the rock magnetism and paleomagnetism communities (and the
community in physics interested in magnetic properties at low temperatures).
Undergraduates will take part in the characterization of magnetic
minerals, low temperature remanence measurements and data analyses.